Improving Introductory Economics Education by Integrating the Latest Scholarship on Economics of Women and Minorities

9354006 Feiner This project involves the development of undergraduate faculty in the new scholarship on the economics of women and minorities. The five-day workshop is expected to help develop a full curriculum for teaching and assessing student learning of this scholarship. More specifically, seminar participants are instructed in recent developments in the scholarship on women and minorities by scholars contributing these developments. They also work in teams to modify courses to incorporate the new scholarship, critique and refine these modifications, and will develop techniques to assess the impact of these changes on student outcomes. Follow-up activities and a dissemination conference is scheduled, and proceedings will be published in an edited volume. It is also expected that the incorporating of this new scholarship will encourage greater numbers of minority and female undergraduates to pursue economics. ***